Theoretical Intermediate Energy Physics at Rutgers University

I propose to investigate the role of sub-nucleon degrees of freedom in low and medium energy processes. In particular processes of very short range like nucleon- antinucleon annihilation and subsequent hadronization, mainly into pions, will be investigated. Microscopic models for annihilation and hadronization are either based on nucleon degrees of freedom, or sub- nucleon degrees of freedom, for example quarks and gluons. A large amount of accurate data from the LEAR accelerator at CERN on very specific annihilation modes of proton- antiproton collisions over a wide energy range, are now available. These data allow for a detailed comparison of experimental results with predictions from microscopic models and draw conclusions about their validity. In particular the spin dependence of the observables promises to be a stringent test on the models. A further test is if a consistent description of annihilation into three as well as two mesons can be found.